Young Scholars Field Research Institute

9353887 Cunniff Prince George's Community College seeks to provide a Young Scholars Field Research Institute in Field Biology for 24 junior high school students from the Washington-Baltimore region. The four-week summer commuter program will involve classroom discussions, laboratory and research experiences, and field trips with follow-up activities during the academic year. Research will focus on the following areas: endangered crane research at the Patuxent Wildlife Research Center, Laurel, Maryland; osprey banding and behavior at the Patuxent Jug Bay Facility; aquatic ecology at the Chesapeake Biological Laboratory, Solomons, Maryland and the Patuxent Jug Bay Facility; and turfgrass research at the University of Maryland Turfgrass Research and Education Facility, Silver Spring, Maryland.